Transportation Economics in the 21st Century

This award will fund a series of meetings where NBER researchers will present the results of white papers on various aspects of transportation economics. Topics include procurement, infrastructure, and supply chains; the effects of policies aimed at de-carbonization of the transportation sector; quantifying the widespread economic impact of the U.S. transportation sector including effects on employment, productivity, and household time use; how to best measure the costs and benefits of complicated transportation projects, and the distributional consequences of transportation policies and projects across income, racial, and ethnic groups. This award is funded through a partnership between NSF and the Department of Transportation.